Chronicling a Major Scientific Breakthrough: a Longitudinal Video Documentary of Advanced LIGO and the Beginning of Gravitational Wave Astrophysics

This award supports the production of a longitudinal video documentary of the evolution of Advanced LIGO and will chronicle the most critical and exciting period in the history of gravitational wave science in the past 100 years. LIGO resumed the search for gravitational waves in 2015 with a newly upgraded detector and on September 14, 2015 detected gravitational waves for the first time, astounding not only the scientific community but the entire world. Using footage captured at critical periods between August 2015 and March 2016 during the discovery phase as well as new filming taking place over the next two years, the team will produce films which will impact at least hundreds of thousands of people and possibly many more than that. The goal is to educate, inspire, and motivate. Students at the high school and undergraduate levels may be more inspired to pursue STEM careers after watching scientific vignettes focusing on the exciting science and technology of Advanced LIGO. Scientific historians and sociologists will have the opportunity to use the hundreds of hours of available film clips as a video database to investigate in detail the discovery of gravitational waves as a case study of large scale collaborations ("Big Science"). Videos highlighting the cutting edge technological advances brought about by Advanced LIGO and their impacts on other fields of science and technology may prove effective for educating officials and policy makers on the benefits of fundamental science.

During the course of the project, a series of professionally made video shorts will be produced for the LIGO Laboratory and LSC for education and public outreach purposes through distribution on LIGO Laboratory, LSC web sites, and the LIGO YouTube Channel. Through an extensive series of film shoots, XPLR Productions will work with the LIGO Laboratory and the LIGO Scientific Collaboration (LSC) to capture key moments as LIGO scientists work to achieve Advanced LIGO's design sensitivity and carry out a series of observing runs over the next two years. The team will produce a series of video shorts explaining the important scientific and technological concepts and issues of Advanced LIGO by the scientific experts who create them. In the longer term, footage will used to produce either a feature length documentary film or a twelve-part series on television entitled 'LIGO' chronicling the discovery of gravitational waves and the exploration of exotic high-energy astrophysical phenomena such as colliding black holes. Intended for broad distribution through cinema or television, 'LIGO' will bring science to life for a wide audience.